Neural Substrates for Visual Recognition

The ability to visually recognize complex objects is dependent upon structures within the central nervous system which are responsible for perceiving the objects and for processing the information received. One important type of visual recognition which is critical for any species is the ability of individuals of that species to distinguish members of different species from those of their own species, or conspecifics; this type of discrimination is important to recognize potential predators as well as potential mates. In this award to Dr. Toru Shimizu, visual recognition will be studied in two avian species. Anatomical connections between various parts of the higher visual areas of the central nervous system will be studied using tracer techniques. Discrimination based on differentiating between members of the same or different species, and between the two genders will be studied with the use of video images. The importance of different regions of the higher visual areas of the brain will be determined by studying the effects of selective ablation on performance in the discrimination paradigm. This research contributes knowledge about how the brain recognizes complex visual objects and how this visual information is processed to obtain meaningful responses.